Shape Control of Calendering Processing

Research involves modeling algorithic development and computer implementation of large, complex problems arising in transportation, distribution, and logistics. Techniques to be employed include interactive optimization, non-classical decomposition and relaxation strategies and incorporation of soft constraints.